Equipment Acquisition to Enhance Research and Education on the IMSC Media Immersion Environment (MIE)

Abstract EEC-9872823 Nikias This award will fund the purchase of equipment to enhance, augment and expand research and education activities on the Integrated Media Systems Center's (IMSC's) Media Immersion Environment (MIE). The MIE is the centerpiece of the research program and strategic plan of the IMSC, and provides a physical hardware and software framework for the integration of multimedia engineering and scientific developments from IMSC and elsewhere, with broad multidisciplinary applicability to every aspect of the human sensory experience and interpersonal interactions. Special purpose equipment will be purchased to enable the continued evolution of the MIE concept.